NeTS: Small: Theory and Practice of Coooperative Wireless Networks

Although theoretical results predict that significant gains can be
achieved from node cooperation, current wireless systems are exclusively
built on point-to-point communication, where transmissions are separated
in time, frequency, or space. Before cooperative techniques can be
implemented, two key questions need to be addressed: How do they perform
in the context of a larger network, and how do they perform in actual
experiments?

This project aims at providing answers to both these questions by
combining theory and experimental work. On the theory side, the
investigators use a rigorous analytic approach that combines tools from
stochastic geometry and information theory. The stochastic geometry
approach permits statements about ensembles of networks, rather than
just a single fixed network geometry, which is often more tractable and
leads to more general results. On the experimental side, performance
measurements are taken on small cooperative networks of software
radio devices. They are used to derive analytical models that can be
used at higher layers in the protocol stack and to determine the overhead
and control traffic required to set up the cooperation.

Based on the insight gained from both theory and experiments, novel
cooperative protocols for wireless networks are derived.
It is expected that the project will enable significant improvements in the
performance of wireless systems, thereby helping to overcome the
spectrum scarcity. The results are be disseminated in form of conference
and journal articles, tutorials, and short courses, and some ideas will
hopefully lead to patents.